CAREER: The Physics of Magnetic Reconnection in Space and Laboratory Plasmas

This project will integrate studies of magnetic reconnection with educational procedures for both undergraduate students and graduate students on the subject of reconnection. Magnetic reconnection is a fundamental process the converts magnetic energy to into heat and high speed flows in many natural and artificial plasmas. It plays an essential role in the physics of the Earth's magnetosphere, the interaction of the magnetosphere with the solar wind, the solar corona, the interstellar medium, molecular clouds and accretion disks. In addition it also plays an important role in laboratory fusion experiments. This project is a five year plan that will examine questions about the role of plasma instabilities on 3-D reconnection; the role of strong gradients, weak magnetic shear and finite collision frequency on the reconnection rate; the role of reconnection on small scale turbulence; the experimental signatures of reconnection; and comparison of model/simulation results to observations of reconnection in systems such as the Earth's magnetopause. All these scientific investigations will be integrated in undergraduate and graduate physics courses. This project will aid in the establishment of the Dartmouth Computational Plasma Physics Facility.